PostDoctoral Research Fellowship

This award is made as part of the FY 2019 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist. The title of the project for this fellowship to Lynelle Ye is " Interpolation spaces of p-adic automorphic forms". The host institution for the fellowship is Stanford University and the sponsoring scientist is Richard Taylor.